Mathematical Sciences: Spectral Properties of Schrodinger Operators and Hyperbolic Manifolds

Professor Hislop's project in mathematical physics will investigate the resonances of Schrodinger operators with periodic potentials and an external electric field, and the relation between resonances and the meromorphic structure of the S-matrix for these and more general two- and N-body Stark Hamiltonians. (As used here, the term resonance refers to a pole of the meromorphic continuation of the resolvent of an operator through the continuous spectrum.) The techniques involved include commutator methods, semiclassical analysis, and geometric resolvent equations. These techniques will also be used to study the spectrum of the Laplacian on a class of non-compact hyperbolic manifolds. Geometric conditions will be sought implying the absence of eigenvalues and the exponential decay of eigenfunctions. The research here envisioned involves the analysis of sophisticated mathematical techniques for the modeling of physical systems, especially at the microscopic level where intuition can lead one astray. Instead of representing physical quantities by numbers, one is forced to use instead functions and operators on spaces of functions. The Hamiltonian of a system is an operator that corresponds roughly to energy. Its spectrum is a set of real numbers defined mathematically that have the physical interpretation of possible energy levels of the system. Physics and mathematics play off one another in analyzing the spectrum of a given class of Hamiltonians. Another context in which operators arise naturally is geometry. Any surface (or higher-dimensional analogue) on which coordinates can be assigned in a sufficiently smooth manner has associated to it an operator called the Laplacian. (In the case of a surface, the spectrum of the Laplacian may be thought of as giving frequencies of natural modes of vibration.) Professor Hislop will investigate the spectral theory of geometrically defined operators using techniques developed in the mathematical physics part of his project.